Multiply-bonded Silicon and Boron Compounds (Chemistry)

This Organic and Macromolecular Chemistry project is directed towards the development of new carbon-silicon and carbon-boron synthetic methods, which will permit the preparation of unique, new, polymeric materials of theoretical and practical interest. New kinds of multiply bonded molecules of silicon and boron will be synthesized and characterized. The organosilicon and organoboron species to be prepared include (1) Disilynes and their polymerization products; (2) Stable 1,4- and 1,2- disilabenzenes; (3) Stable silanediimines; (4) Silynes; (5) Borenes and Diborenes; and (6) Boranones.